Architectural Studies and Simulations of Large-Scale Multiprocessor Systems

This project includes two research efforts related to the Cedar project: enlargement of the Cedar shared memory and architectural studies for new large-scale multiprocessors. The memory enlargement allows realistic benchmarks to be run on the machine, which facilitates the architectural studies. The studies to be carried out include investigations of memory hierarchy organization in multiprocessors, cache design, virtual memory, and new techniques for processor synchronization and instruction execution. These topics are being investigated analytically, by simulation, and experimentally on the enlarged Cedar.